Modeling of Mixed Pixels and Shadowing Effects in Satellite Data for Geobotanical Remote Sensing Applications (Geography)

Vegetation responses to naturally- and culturally-induced disturbances in the environment may be expressed phytogeographically or morphologically, and previous studies have documented the detection of such changes in satellite data. Current image processing techniques limit our ability to detect the changes in areas having complex vegetation patterns or shadowing caused by high topographic relief. This study will evaluate several models for interpretation of mixed-pixels and shadowed data and develop processing techniques to enable us to extract the maximum spectral information from vegetation. Two study areas, one having high topographic relief in the northern Rocky Mountains and one having a mosaic of vegetation communities in the humid eastern U.S., will be used for testing and verification of results. Satellite data sets to be used include Landsat Thematic Mapper and French SPOT data. Such technology will be of use to workers in many fields, including geology and mineral exploration, rangeland improvement, desertification studies, agriculture, and forestry. Teaching and counseling activities will complement the research. Two formal courses will be offered, as well as individual counseling of students who express interest in a geobotanical project. Of importance to both home and host institutions is the exchange of information and ideas with faculty and research staff which will result in expanded skill and knowledge of all participants. Considering the very small percentage of women in geosciences, Dr. Milton's presence will be a strong statement to women considering careers in geology or mining engineering. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.